REU: Research Experience for Undergraduates in the Geosciences

9732064 Christensen This Research Experience for Undergraduataes (REU) Site grant will support a minimum of eight undergraduate research assistants in Solid Earth Geophysics for each of the next three summers. The program will give undergraduates majoring in geology, geophysics, physics, and closely related disciplines, experience in the types of research conducted at the Geophysical Institute. The program objective is to acquaint undergraduates with the exciting research opportunities in the various fields of geophysics concentrating on seismology, volcanology, geochronology, geochemistry, paleomagnetics, geodesy, tectonics, glaciers and sea ice, and remote sensing, and encouraging the undergraduates to go on to graduate school in these or other scientific areas. Women and minorities will be particularly encouraged to apply. ***